Handbook on Risk Assessment

The purpose of this grant is to provide partial support for the preparation of a handbook on risk assessment for scientists and decision makers. The handbook is being prepared by the Office of Environmental Quality with the assistance of one or more contractors. The handbook will provide background on risk assessment and its use in characterizing risks. The handbook will also include two appendices. The first appendix will review the theoretical and methodological literature on biotechnology risk assessment. The second appendix will review the theoretical and methodological literature on ecological risk assessment. For purposes of writing these appendices, expert papers will be commissioned and expert workshops will be held. Despite the importance of risk assessment in decision making, no attempt has been made to integrate knowledge from theoretical and applied studies. This innovative project will review the risk assessment literature in order to develop a comprehensive guide to recent developments in risk assessment theory and methods. It is expected that the project will provide important information both for individual research scientists and for government research programs. Specifically, it is expected that the results of the study will (l) contribute to the development of improved understanding of the role of risk assessment in the decision making process; (2) identify gaps in scientific knowledge and needs for research, and (3) provide critical access to information on models and methods for addressing difficult and complex issues in risk assessment and management.